Academic Research Infrastructure: Acquisition of Instrumentation to Provide Scientific and Data Visualization Capability at Clark Atlanta University

9601787 Adeyemi, Hazekiah Olatidoye, Olugbemi Clark Atlanta University Academic Research Infrastructure: Acquisition of Instrumentation to Provide Scientific and Data Visualization Capability at Clark Atlanta University This Academic Research Infrastructure award supports the acquisition of a high end visualization computer. The research projects supported by this instrumentation include: 1. Research in the Geographic Information Systems laboratory including health risk assessment, GIS DB improvement, and 3-D Virtual GIS. 2. Research on the synergy of Design, Simulation, and Visualization in Engineering.